Basic Chemistry for Inadequately Prepared High School Chemistry Teachers Through State-Wide Workshops

Basic Chemistry for Inadequately Prepared High School Chemistry Teachers Through State-Wide Workshops will use a group of selected high school and college teachers of general chemistry to design a workshop program of instruction in basic chemistry for inadequately prepared high school chemistry teachers. During the first summer of operation (1988) a prototype workshop will be held at which the workshop curriculum will be class-tested and improved by the developers who also will serve as the instructional staff. This six-week program then will be offered at five regional workshops at locations across Mississippi during the summer of 1989 (four of the workshops will be supported by NSF funds). At each workshop a team consisting of an experienced high school chemistry teacher and a college teacher will instruct 20 particpants in basic chemistry and effective teaching methods. Laboratory teaching will given special emphasis. During the following academic year each participant will be visited in his or her school by a workshop staff member in an individualized follow-up activity. Group follow-up meetings also will be held during the academic year. Up to five more regional workshops will be offered during the summer of 1990 (three supported by NSF funds). The program has been developed under the auspices of the Mississippi section of the American Chemical Society with the cooperation of faculty from several Mississippi university and college campuses.